Mathematics of Metamaterials

Milton
0707978

Superlenses achieve resolution finer than convential lenses,
and have some startling properties, such as making polarizable
dipoles essentially invisible if they lie within a critical
distance of the lens. This project improves our understanding of
superlenses and invisibility, particularly for spherical
superlenses, which not only superresolve but also magnify. It
also seeks to characterize exotic electromagnetic behaviors that
composite materials formed from constituent materials with
extreme properties can exhibit in the quasistatic limit, where
the wavelength of the time-harmonic radiation is much larger than
the microstructure. The investigator also studies a new class of
material named "massnetic materials." These have in their
microstructure collections of spinning tops, each situated in a
cavity in the body, and each weighted on one side by a mass that
allows one to increase or decrease the spin of each top by
appropriately oscillating the body. These materials should be
able to store and release energy on the microscale. The
investigator also explores new equations of elastodynamics, and
studies novel microstructures with the unusual property that
their average momentum depends not just on their overall
velocity, but also on how they are deformed, i.e. on their
strain.

Metamaterials, i.e. composite materials with properties
unachievable in ordinary materials, have attracted a great deal
of interest and are beginning to revolutionize our understanding
of materials and the properties they can exhibit. More
technogical applications of these materials are now possible due
to advances in our ability to tailor the microstructure of
substances, for instance through nanotechnology. This project
studies how composites can be constructed from high contrast
materials to exhibit elastic and electromagnetic properties far
richer than existing materials. In the defence, automotive,
aerospace, electronics, and other manufacturing and
telecommunication industries there is a constant need for new
materials. The impact of such new materials is likely to be
greatest when their properties are radically different from any
material we know. The project could lead to the development of
whole classes of radically different new materials with novel
properties. Also it should give a much needed firm theoretical
foundation to Pendry's work on spherical superlenses, and enhance
our understanding of invisibility.